CAREER: Correlated Phases and Non-equilibrium Dynamics in Topological Flat bands

Nontechnical Summary
This award supports theoretical and computational research and associated education on moiré materials. Modern electronic materials can show behavior far beyond ordinary metals and insulators. When two atomically thin semiconductor layers are stacked with a small twist angle, they form a large-scale interference pattern, known as a moiré superlattice, that dramatically changes how electrons move. This can cause electron-electron interactions to dominate, giving rise to a rich variety of quantum phases within the same material, including magnetism, superconductivity, topological insulating states, and crystalline arrangements of electrons.

The PI aims to develop a simple and predictive theoretical framework for understanding these correlated phases in twisted semiconductor materials. The central goal is to identify which phases arise from universal physical principles and which depend on material-specific details. The PI studies how electron density, interaction strength, and magnetic field control the competition among magnetism, topological insulating behavior, superconductivity, and crystalline electron order. The results will help guide future experiments seeking higher-temperature topological states and new platforms for low-power electronics and quantum technologies.

The research activity is closely integrated with education and outreach. This project supports graduate training and provides undergraduate research opportunities for students from community colleges and rural areas of Kentucky and Central Appalachia. These students join an existing summer research cohort at the University of Kentucky and receive training in quantum mechanics, materials physics, and computational methods. The project also increases public engagement with condensed matter physics. The PI develops public lectures and community science talks and aims to help modernize the University of Kentucky Physics Petting Zoo, a long-running hands-on outreach program for elementary and middle school students. These activities help make modern materials research more accessible to students, teachers, and the broader public across Kentucky.

Technical Summary
This award supports theoretical and computational research and associated education on moiré materials. The PI aims to develop a minimal theoretical framework for understanding correlated and topological phases in moiré semiconductor materials. Recent experiments on twisted two-dimensional semiconductors have found many remarkable phases, including fractional Chern insulators, quantum spin Hall states, generalized Wigner crystals, and superconductivity. A time-reversal-symmetric model of moiré semiconductors is studied in which strong Coulomb interactions act within topological flat bands. A key advantage of this model is that it can be rewritten in terms of coupled electron and hole Landau levels. This makes it possible to describe the interactions using generalized Haldane pseudopotentials and to connect moiré semiconductor physics with powerful methods developed for quantum Hall systems.

The first part of the research focuses on correlated phases at zero applied magnetic field. The PI and research team aim to derive effective interactions using perturbation theory at weak coupling and a Wilsonian renormalization-group approach at stronger coupling. The resulting effective Hamiltonians are studied using Hartree-Fock theory, time-dependent Hartree-Fock theory, and exact diagonalization. These methods are used to map the phase diagram and study magnetism, fractional Chern insulating phases, Wigner crystals, and possible superconducting instabilities. The second part of the research extends the theory to finite magnetic fields and nonequilibrium dynamics. A new field-dependent basis allows the effective Hamiltonian to evolve smoothly with the magnetic field. This makes it possible to compute magnetization and collective modes across the phase diagram. The results are compared with experimental signatures.

The PI also studies three-body interactions in graphene and related systems. These interactions may play an important role in intervalley-coherent dynamics, hydrodynamic transport, and a momentum-space Josephson effect. Overall, the PI aims to produce a unified theoretical description of correlated topological phases in moiré materials, provide benchmark numerical results, release useful computational tools, and generate predictions that can be tested in current experiments.